Status of Federal Research on Infrastructure Deterioration

This special project is cooperation with Worcestwr Polytechnic Institute to interest undergraduate students in pursuing a career in engineering, and at the same time pursue an investigation of research activities within the Federal agencies which will be of great benefit to the agencies and especially to the NSF Program of Systems Engineering for Large Structures. The study will involve a review of the research activities of several Federal agencies in the broad field of repair, retrofit, and rehabilitition of public works. The investigation will provide data for the Agencies to cooperate in their research funding opertions and to avoid duplication but to correlate projects for maximum return.